A Program of measurement of high energy electron and gamma ray interactions with matter

This award will support preparing, carrying out, and analyzing a
series of measurements of electromagnetic structure of matter by the
University of Massachusetts Group, primarily at the Stanford Linear
Accelerator Center (SLAC) and for conducting a program of graduate
and undergraduate education in experimental high energy nuclear
physics. This work has as a common thread the use of high energy
(sometimes polarized) electrons and gamma rays to probe matter. A
major area of work will be the data runs, analysis, and publications
for SLAC Experiment E158 that will use the SLAC high intensity
polarized electron beam and a new dedicated spectrometer and
detector system to measure parity violating asymmetry in
electron-electron scattering. This high precision data will provide
important tests of the Standard Model of matter at low momentum
transfer in the electromagnetic coupling via the interference
between exchange of virtual photons and Z bosons. The UMass Group
has contributed to the design of the spectrometer and beamline
instrumentation, to the calibration systems, and to implementation
of the data acquisition system. The UMass Group is taking a leading
role in developing a new high intensity, high energy
quasi-monoenergic polarized photon beam facility to be build at SLAC
for a program of experiments: 1) to measure the high energy
contribution to the Gerasimov-Drell-Hearn sum rule 2) to measure the
nuclear dependence of the photoproduction of charmed mesons and 3)
to measure the gluon spin distribution using polarized
photoproduction of charmed mesons.